Archaeology and Paleoecology of the Broken Mammoth and Mead Sites, Central Alaska

The primary objective of this proposal is to study the archaeology and paleoecology of the Broken Mammoth and Mead sites in central Alaska. Preliminary archaeological testing of these sites provided an abundance of artifacts, faunal and other organic materials from the late Pleistocene-Holocene, 11,500-10,500 B.P. This may be the first conclusive evidence that humans and mammoths coexisted in Alaska and could provide the most detailed picture of human subsistence thus far discovered in northern North America. In addition, this study will provide information about human adaptation and climate change in Beringia, the main migration route of humans to the New World.